Conference: Incorporating Ethics into the Human-Centered Design of AI Solutions

The goal of this workshop is to explore active human centered approaches to develop a framework that supports the integration of ethical considerations and constraints into the design of AIs, from the ground up, and starting from an early phase of requirements gathering and feature specification. The hope is thatthe human centered active approach, and the early consideration of ethical and social requirements, will have a significant payoff in promoting human well-being.

The workshop will address four areas: 1.) Knowledge Representation: The development of methodology(ies)for the acquisition, validation, and representation of ethical information in a way that can be incorporated into system design; 2.) Design Guidelines: Strategies that incorporate human centered design principles into the design of User Interfaces (UIs); 3.) Metrics: The definition of evaluation metrics to test the success and limitations of prototype AI solutions in some selected domains; 4.) Regulation and Compliance: Crafting regulations to be more easily incorporated during design to improve and ensure compliance.